Precision Methods for Numerical and Experimental Characterization of Dielectric Resonators

Dielectric resonators are the building elements for miniaturized microwave circuits, used in communications microwave measurements, and radars. An accurate numerical solution of the electromagnetic field in and around the dielectric resonator is needed in order to provide the design data for building the components which contain dielectric resonators. The design diagrams and tables, which will be obtained in the present investigation, are of importance to practicing microwave engineers, since the characterization of dielectric resonators is considerably more difficult than the characterization of the empty microwave resonant cavities, which the dielectric resonators are replacing with substantial savings in cost. Furthermore, for the applications in the computerized-assisted design methods (CAD), the development of numerically effective and reliable computational procedures is of great importance. The experimental investigation in this project will concentrate on the development of automated measurement procedures, and processing of the data obtained by these procedures. The applications of this investigation are foreseen in the improvements of the complex permittivity measurements at microwave frequencies.